SGER: Exploration of New Methods for Treating Bottom Topography in Models

New schemes to accurately parameterize the sub-grid effects of bottom topography in Ocean General Circulation Models (OGCMs) will be tested. Of particular interest is a more realistic prediction of the separation point of topographically steered boundary current like the Gulf Stream.